Documentation of the Utilization of DSV ALVIN

The Woods Hole Oceanographic Institution proposes to write an informal history of the ALVIN deep submergence program suitable for wide dissemination to a lay audience. For more than two decades, ALVIN has served as the principal deep submergence facility for ocean science and has proved to be an essential tool for the investigation of ridge crest processes and a wide variety of other deep ocean phenomena. In addition, ALVIN has received wide publicity for two major non-science missions: the search for a hydrogen bomb lost in the crash of a B-52 aircraft off the coast of Spain in 1966, and her historic dive to the wreck of the TITANIC in 1986. The ALVIN submersible has evolved significantly since her initial certification in 1964, including the addition of a titanium personnel sphere to permit a 4,000-meter dive capability, an entirely new propulsion system, exceptionally sensitive video equipment, and the almost continual evolution of her external sampling and grappling gear. In fact, improvements to the original submersible have been so complete that not a single part of the early ALVIN remains in the present-day submersible. As significant as ALVIN's contributions have been to date, there is reason to expect continued -- perhaps even increased -- attention to the ALVIN program in the future. The recent conversion of R/V ATLANTIS II to replace R/V LULU as ALVIN's support ship now provides the program with a new worldwide capability as well as significantly enhanced laboratory support, maintenance facilities, and improved accommodations for scientists and the ALVIN team. The upgrade of ALVIN's support ship seems certain to spur a major new era in ALVIN investigations. Consequently, a history of the ALVIN program is particularly appropriate at the present time, and its publication will coincide with the 25-year anniversary of the ALVIN program. The principal investigator has an excellent record of science publications for the lay audience, and her previous publications have focussed particularly on marine scientific research. Ms. Kaharl's position at WHOI provides her with particularly good access to many of the principal figures in the history of the ALVIN program. Reviews in general were highly favorable, with some concern expressed regarding the high cost of this proposal in a period of tight budgets in NSF ocean science. However, the reviewers were not aware that support of this proposal is to be a joint effort among the agencies which support the ALVIN program: the Foundation, the Office of NAVAL Research, and the National Oceanic and Atmospheric Administration. In addition, Program has negotiated a reduced budget which institution's representative has agreed is sufficient for this project to proceed. Program has also expressed to institution's representative the particular importance of emphasizing the contributions of the ALVIN program to ocean science in addition to her well-known technological significance and her previously well-publicized achievements in ocean exploration. ALVIN has served with a remarkable record of safety, reliability, and effectiveness as the pre-eminent U.S. national facility for deep submergence research. This is a story that fully deserves to be made publicly available. Program recommends that an award be made at this time in the amount of $60,000. This amount includes $15,000 from the National